ITR: A Center for Safety-Critical Embedded Software

The problems associated with building complex heterogeneous systems
composed of computer, human, and electromechanical components are starting
to overwhelm system and software engineers, resulting in failed projects
and accidents related to software behavior. As the complexity of the
systems grows, so does the difficulty of ensuring safety.

Model-based system and software engineering is an approach to building
complex systems that is based on common models and specification languages
that are understandable and reviewable by all the engineers on the project
and by those who must interact with and use the automation as well. The
research topics to be investigated are: (1) enhancing requirements
specification reviewability, (2) assisting engineers in creating large,
complex specifications, (3) minimizing the disruptions caused by changes
in requirements, and (5) specifying and analyzing safety-related
properties using the models.

To ground the research, the new approaches will be applied experimentally
to the advanced air traffic control systems being developed and
validated by Eurocontrol (the European Organization for the Safety of
Air Navigation). ATC provides a challenging testbed but the results
of the research should be equally applicable to medical, defense,
transportation, manufacturing, and other complex, real-time systems.